Life History Cost/Benefit Trade-offs in Cynomys gunnisoni

Gunnison's prairie dogs (Cynomys gunnisoni) formerly were an important part of the ecosystem of the western United States, serving as common prey for golden eagles, peregrine falcons, coyotes, bobcats, badgers, and black-footed ferrets. Shooting and poisoning brought these animals to the brink of extinction in the early 1970's. Little is known about their reproductive and population biology. The proposed research will examine the natural history and population biology of Gunnison's prairie dogs living under natural conditions at Petrified Forest National Park in Arizona. Inbreeding usually produces inferior offspring. Like other animals, Gunnison's prairie dogs avoid extreme inbreeding with relatives such as parents, offspring, and siblings. Do they also avoid mating with more distant kin such as first and second cousins? By directly observing copulations of individuals of known genealogies, the frequency of moderate inbreeding among Gunnison's prairie dogs and whether such inbreeding yields inferior offspring will be identified. Communal nursing, the suckling of another female's offspring, is rare among mammals living under natural conditions. Trying to understand apparent cases of altruism such as communal nursing poses one of the greatest challenges to evolutionary and behavioral ecologists. Communal nursing among Gunnison's prairie dogs occurs in three different contexts, and affects more than 10% of all juveniles. The proximate and ultimate causes for this high frequency of communal nursing will also be investigated.